Presidential Young Investigator Award: Czochralski Crystal Growth Using a Uniform Axial Magnetic Field

The chosen research topics for this PYI program will integrate the classical areas of mechanics and applied mathematics with materials processing concepts. The approach will be interdisciplinary. Several problems will be addressed,including the processing of new materials, and optimization of existing methods. Examples include Czochralski crystal growth and processing of composite materials. ***//